Assessing Research Training, Education, and Career Development in Bioengineering, Medical Engineering, and Bioinformatics: Opportunities for NIH and NSF Collaboration.

Assessing Research Training, Education and Career Development in Bioengineering, Medical Engineering, and Bioinformatics: Opportunities for NIH and NSF Collaboration